The Solar Wind Near the Sun

This proposal's immediate objective is measuring the solar wind near the Sun using radio remote-sensing techniques. The PI's observations made under a previous grant suggest the main acceleration of the fast polar streams takes place closer to the Sun than previously expected. In addition, prior observations show a component of enhanced density fluctuations at scales just above the proton Larmor radius. Both of these results are important for the heating of the corona and acceleration of the solar wind, but they will have to be confirmed by additional observations. This research will primarily contribute to a fundamental understanding of the Sun in general and solar wind in particular; i.e., space weather forecasting. Moreover, the techniques employed may be useful for the study of the marine boundary layer, important for short range radio communications over the ocean.